2009 Microfluidics, Physics & Chemistry of Gordon Conference

CBET-0840628
Santiago

The 2009 Gordon Research Conference will address topics that represent the latest advances in the field of microfluidics and nanofluidics over the past year. Topics that will be discussed in invited oral and poster sessions include nanobiotechnology, systems integration, nanofluidics, and single molecule manipulation and measurement with emphasis on biomedical applications of microfluidics. Young scientists, including graduate students, postdoctoral fellows and young faculty, are invited to present their latest work during several poster sessions at the conference. At previous conferences in this series, the poster sessions have been dynamic and interactive and are an integral part of the research presentations. Oral and poster presentations at this conference are encouraged to be forward thinking or controversial on subjects that are not yet published. Funding will support conference fees and/or travel costs for participants with emphasis on graduate students, post-docs, and young academic researchers.